Incorporation of FT-NMR Spectroscopy into the Undergraduate Physical Science Curriculum

This project introduces contemporary nuclear magnetic resonance (NMR) spectroscopy into the physical science curriculum by acquisition and use of a high-field FT NMR spectrometer. Major advances over the past decade have transformed this technique into a fundamental tool of chemistry and physics, as well as a cornerstone of emergent medical technology (NMR imaging). Available equipment is both accessible to nonexperts and capable of performing such previously difficult or impossible tasks as high-field NMR, 2-D NMR, and relaxation measurements. With this equipment the students -- a substantial number go on to careers in science, medicine and industry -- have hands-on experience with equipment and techniques they will encounter later. The use of FT-NMR spectroscopy is integrated into the core chemistry and physics curriculum, which is also critical to majors in related fields. Improved classes and laboratories, together with existing faculty expertise, serve to enhance student research. The grantee provides funds for this project that are an equal match for the NSF award.